Japan Long-Term Research Visit: The Species-Area Relationship for the Land Birds of the Ryukyu Islands

This award will include a twelve month long-term visit by Dr. William N. Beckon of the Division of Environmental Studies at the University of California, Davis, to Japan for a cooperative research project with Professors Makoto Tsuchiya and Hidetoshi Ota of the Department of Biology at the University of the Ryukyus in Okinawa. Dr. Beckon will be obtaining scientific data to determine the number of species that can inhabit any given area of islands or habitat. He has recently completed a database of unprecedented scope on the distribution of land birds in the Fiji Archipelago and on larger land masses around the world. He will expand his survey to the Japanese Ryukyu Islands. This data combined with the Fiji Island data will provide the broad base needed for a comprehensive theory of species-area relations. It is expected that the research will be among the most important long-term studies in island biogeography Results of the research on species-area relations are important to community ecology and may prove valuable in framing of policy guidelines for conserving biological diversity. Professor Tsuchiya specializes in marine and island ecology and Professor Ota has traveled widely around the Ryukyu Islands undertaking reptile studies. Both of these researchers are anxious to cooperate in the island biogeographical project. Dr. Beckon is an excellent field naturalist-ornithologist with impressive field experience. He is considered the primary American authority on the vertebrate fauna of the Fiji Islands. This collaboration should provide important scientific results. It is likely that these researchers will continue their research exchanges even after the award has terminated.